A Multimillennial Temperature Reconstruction from Far Northeastern Eurasia

Abstract ATM-9413327 Hughes, Malcolm University of Arizona Title: A Multimillennial Temperature Reconstruction from Far Northeastern Eurasia There is a real possibility that a multimillennial tree-ring chronology extending over most or all of the Holocene could be built in far north-eastern Siberia. This SGER award supports exploratory field work and dendrochronological analysis of subfossil material from Arctic - Siberia. Experience with larch trees elsewhere in Siberia strongly suggests that a valuable reconstruction of summer temperatures could be derived from this material. This would form a key part of a network of high-latitude temperature records, including tree-ring based constructions from Scandinavia, the Polar Urals and Alaska, and ice-cores from Greenland and other locations. Such a chronology could also be used to date subfossil wood from many locations within the region, and hence to contribute to the study of northern treeline dynamics through the Holocene.